Undergraduate Research Program in Chemical Physics at the University of Oregon

The members of the Chemical Physics Institute at the University of Oregon are being supported to establish an undergraduate research program for students who are interested in the field of physical chemistry. Ten research supervisors will be involved in the program and the research opportunities will include: o Spectroscopy of Organometallics and Molecular Radicals o Preparation and Spectroscopic Characterization of Urea and Thiourea Complexes o Mercury Adsorption on Semiconductor Surfaces o Pulse Generation in Dye Lasers Pumped Asynchronously This program will involve faculty members from institutions that do not offer the Ph.D. degree in 1988 and 1989. It is believed that the plan to develop this program at Oregon will encourage more undergraduate science majors to pursue research careers in chemical physics/physical chemistry. It is a goal of this program to insure the availability of an adequate number of technically able U.S. students for our future academic and industrial research positions.